Support for Research of U.S. Scientists Working in India, Award in U.S. and Indian Currencies.

Description: This project partially supports the American Institute of Indian Studies (AIIS) for management and funding of research activities in the behavioral and natural sciences conducted by U.S. scientists in India. Candidates with background in India who apply to AIIS are screened, and those nominated are referred to NSF for final selection. The AIIS manages the required clearances for the research, and the logistics involved in the travel, local arrangement and conduct of research in India. They therefore meet NSF and Government of India requirements as well as the scientists' needs. Areas of research typically include anthropology, linguistics, sociology, economics, political sciences as well as biology, mathematics and engineering. The U.S.-India program supports U.S. scientific research in India in areas of interest to NSF and where the research could lead to better understanding between the two countries through science. This project meets program criteria. Scope: The AIIS is a very well organized institute with membership of over 42 of the major U.S. universities and colleges with South Asian or Indian Studies programs. The AIIS reviews their applicants through selection panels made of eminent scientists in various broad scientific disciplines. The AIIS offices in New Delhi and other major cities in India have well-established contacts with Government of India departments and are capable of facilitating U.S. researchers' collaboration with host institutes. The areas of research considered are broad, and funds from this project are used only for those normally supportable by NSF science divisions. The candidates and awardees are carefully screened both by the AIIS and by NSF. This program clearly strengthens the scientific collaboration and understanding between India and the U.S.